Information Assurance Scholarships for Service at the University of Nebraska at Omaha

The Nebraska University Consortium for Information Assurance (NUCIA), part of the
College of Information Science and Technology (IS&T) at the University of Nebraska at Omaha (UNO) is implementing and administering a Federal Cyber Service: Scholarship for Service program to provide 30 student scholarships over a four-year period, 15 scholarships at the undergraduate level and 15 scholarships at the graduate (Masters) level. NUCIA has developed undergraduate and graduate curriculum concentrations in information assurance, including seven undergraduate courses and 10 graduate courses. These curriculum concentrations were developed to provide students with a solid background in the fundamentals of information assurance, combined with a diverse set of applied exercises and projects that translate theory into practice.